International Travel to San Juan, Argentina to attend the Latin American Congress on Human Behavior in Seismic Areas

This is an international travel award to permit the investigator to attend the Latin American Congress on Human Behavior in Seismic Areas at the National University of San Juan, Argentina. The central themes of the conferences are: (1) the cultural impacts of earthquakes; (2) seismic risk and regional and urban planning; and (3) education programs in seismic zones. The investigator, who is fluent in Spanish, will share insights gained from the conference with the U.S. research community through a report and interactions at future meetings. The conference will be held in San Juan, Argentina on September 22-26, 1991.